Planning Grant on the Interaction of Local and Transnational Process in the Making of Adoption Law and Practice

This project is for a planning grant to facilitate development of a more extended comparative research project on the process of adoption in the United States and Sweden. The project will investigate the connections between (1) global market processes of economic exploitation (specifically the commodification of poor and Third World children); (2) transnational legal processes of juridical production and expansion (specifically the expansion of legal ideologies and practices through the activities of legal practitioners involved in handling adoption); and (3) local practices, epistemologies, and policies surrounding adoption in the United States and Sweden. The planning phase of the research will involve interviews with attorneys, social workers, staff, and officials of adoption agencies and organizations in the United States and Sweden to explore commonalities and variation in the assumptions informing adoption practice and to develop more formal instruments for subsequent, extended interviews. In addition, this phase of the research will involve a review of appropriate literature on adoption, on legal practitioners, and on the economic, cultural, and political contexts of adoption in each country. The research will contribute to our understanding of theories of legal pluralism as the interpenetration of global (world-system) processes with local knowledge and practices. The approach will set in question the polarity of "official" law and plural social fields by examining the ways global processes both appropriate and are domesticated by "local" and regional processes.